Mathematics Through Applications Project Preliminary Design Research...

This proposal is to carry out exploratory research on "real-world" problem situations. First the resign of such a problem will be undertaken by a consortium that consists of faculty from a research university, members from a national laboratory, and members of an institute for research on learning together with middle school teachers. The research will address how does working on such problems link up with the practice of symbolic skills; connect to mathematical idealizations, e.g. how should the students understanding of linear functions be introduced and emphasized; require additional understanding in subject matter and pedagogy for the teacher. Also the questions of assessment of students will be studied. A project report of the research findings will be made available for other developers of this type of materials.